Operation of the Alaska-Canada High-Latitude Magnetometer Chain

Support for Ground-based instruments is an important goal of the Magnetospheric Physics Program. This project is for the continuing operation of the Alaska-Canada meridian chain of magnetometers and riometers. These instruments are an essential tool for the investigation of high-latitude geomagnetic phenomena and as a remote sensing facility for the University of Alaska and the space physics community. The chain closely follows a magnetic meridian, spanning the auroral oval reaching into the polar cap. The data from the meridian chain has been widely used by the space physics community and has been an important diagnostic for a number of satellite operations and rocket launches from the Poker Flat Rocket Range. *** //